High-Energy Electrons for the Treatment of Wastewater

The objective of this project is to determine the engineering design characteristics of equipment and devices for utilizing high-energy electrons to decontaminate water and to reduce emissions of sulfur and nitrogen compounds from power plant exhaust gases. This project addresses the influence of temperature on the effects produced by the electron beam, determination of the relative effectiveness of a dose delivered by pulsed delivery versus a constant beam, and innovations in design of the acceleration tube and exit window for reliable operation of electron beam devices. The proposal leading to this Phase I award was submitted in response to the Small Business Innovation Research Program Solicitation, NSF 89-30. The project addresses engineering design considerations for devices to deliver electron beam radiation for potential application in reducing emissions of pollutants in domestic and industrial wastewaters and gaseous emissions produced by combustion of fossil fuels and solid wastes.